Travel: SODA 2027 Conference Student and Postdoc Travel Support

The Association for Computing Machinery (ACM) - Society for Industrial and Applied Mathematics (SIAM) Symposium on Discrete Algorithms (SODA) is one of the premier annual research conferences that cover the breadth of theoretical computer science. It is a conference of very long standing that has continued to play a formative role in the field; it is also at the leading edge of connections made to other areas. This project aims to increase the impact of this conference on students and postdoctoral researchers by encouraging and enabling their participation, especially in cases where travel expenses and conference fees would otherwise preclude their attendance.

Concretely, this project assists US-based students and postdoctoral fellows in attending the 2027 Annual SODA conference, sponsored by the ACM and SIAM. The conference will take place in Philadelphia, PA, January 24 - 27, 2027. The project envisions supporting approximately 30 students and postdoctoral scholars in attending this conference. It is planned to select the students in such a way that the group of students attending these top-rank research conferences is broadened. This project will considerably impact the participation of early career researchers and future workforce in the field of Algorithmic Foundations.